Conference: 2005 IEEE-ACES International Conference on Wireless Communications and Applied Computational Electromagnetics to be held in Honolulu, HI on April 3-7, 2005.

0521188
Iskander

With this proposal we respectfully request the NSF support for the 2005 IEEE Topical
Conference on Wireless Communications Technology that will be held jointly with the
Applied Computational Electromagnetics Society (ACES) Conference. The joint
conference will be held during the period April 3-7, 2005, at the Hilton Hawaiian Village
Hotel, in Honolulu, HI.

The objective of the joint conference is to provide a forum for discussing and presenting
recent research results in two of the most enabling technologies in electrical and
communication engineering. While the IEEE conference will focus on advances in the
wireless communications technology, the ACES conference usually deals with advances
in applied computational electromagnetics. In a way, the wireless technology provides
very important application areas for the computational EM research. The complementary
nature of the research areas in the two conferences will hence, provide mutual benefits
for both collaborating organizations and their participants.

The requested NSF funds will be used to cover travel support for graduate students who
will be presenting papers and portion of the grant will be used to cover travel expenses
for an invited speakers who are experts in new and emerging technologies in the wireless
and the computational EM areas.